REU/RIA: Reconstructing Articulate Brachiopod Phylogeny: Relevance to Hypotheses of Adaptation and Heterochrony

Brachipods are marine invertebrates with relatively few living species but a rich, diverse fossil record of more than 3,000 genera. Dr. Sandra Carlson, a recent Ph.D., proposes a superfamily-level study of their ancestor-descendant relationships. She will begin a species-level study of a pivotal fossil group, the Porambonitacea, and then assemble a genus- level dataset on morphological characters for all superfamilies of the Articulata, to be culled from the literature. The first subproject will help to establish the proper characters for analysis, setting the stage for the second higher level study. Considerable research has been done on patterns of evolution and extinction of the Brachiopoda through time, but if the classification of the group is incorrectly constructed, then the patterns are suspect. The proposed study will be the first explicit, repeatable analysis of evolutionary relationships in one of the dominant groups of marine fossil invertebrates. The resulting classification will provide an unprecendented level of objective synthesis, and will provide a model for invertebrate paleontologists to follow.